Development and Evaluation of a Broad Range Fiber Optic pH Sensor

CHE-9408997 Peterson Fdn for Advancement of Ed in Sci This grant, which is jointly funded by the Americas Program in the Division of International Programs and by the Analytical and Surface Chemistry Program in the Division of Chemistry, provides support for Mr. Eden Netto of the Federal Center for Technological Education of Parana, Curitiba, Brazil, to compete the development and testing of a broad range fiber optic based pH sensor. This project is being conducted collaboratively with Dr. John D. Peterson of the Biomedical Engineering and Instrumentation Program, National Center for Research Resources, National Institutes of Health. This three month award complements initial funding for Mr. Netto which was provided through a two-year fellowship awarded by Brazil's CNPQ. Fiber optic pH sensors that respond to a broad range of acidities are technologically innovative, non-invasive devices that are broadly applicable in biomedical diagnosis, environmental analysis, and process biotechnology. It is expected that the successful completion of this project will not only give rise to a particularly useful pH sensor but will also serve as a focal point for further U.S. - Brazil scientific interactions.